Valuations in Dynamics and Analysis

Proposal Number: DMS-0200614
PI: Mattias Jonsson

ABSTRACT

The principal investigator will use valuations,
a tool from algebra, to study local problems
in dynamics and analysis in two complex dimensions.
Valuations can be visualized concretely as the
different ways that a sequence of points can converge
to the origin. In fact, they parameterize all the
local data at a point. Local phenomena in complex variables,
such as the singularity of a plurisubharmonic functions
or the rate of convergence of an orbit to a fixed point,
can be effectively studied by observing the behavior along
different approaches to the point. Valuations constitute a
very powerful tool for this study. The success of the
approach depends on the fact that the set of all valuations
at a point in two dimensions is a set that can be understood:
it is a tree in the sense of an infinite collection of real
intervals welded together at branch points so that no cycles
appear. This tree is a complicated but manageable object
and its one-dimensionality has striking applications.

Dynamical systems are mathematical models that are widely
used in virtually every science for any situation that
undergoes a time-evolution. Sir Isaac Newton invented
calculus, or mathematical analysis, for the study of the
planetary system, a prime example of a dynamical system.
Much of mathematics has developed as a respond to the need
to model and understand the world around us.
In this proposal the principal investigator will use a tool
from a different field of mathematics in order to understand
certain dynamical systems. One example of a system
that can be studied arises from numerical (iterative)
algorithms, and the study of the dynamical systems in
this proposal will give information on the performance of
the algorithms.